Scientific Computing Research Environments for the Mathematical Sciences (SCREMS)

The Department of Mathematics, Statistics and Computer Science at the University of Illinois at Chicago will purchase computational equipment which will be dedicated to the support of research in the mathematical sciences. The equipment will be used for several research projects, including in particular research in Geometric Group Theory (Paul R. Brown); Topology of 3-Manifolds (Marc Culler); Algebraic Geometry (Anatoly Libgober); Theory of Finite Groups (Stephen Smith); and Number Theory (Jeremy Teitelbaum). Most of these projects are data-intensive and amenable to distributed computing techniques.